An International Conference on Cretaceous Climate-Ocean Dynamics

Summary: This proposal requests support for an international conference on Cretaceous climate-ocean dynamics. The conference will bring together a multidisciplinary group of established scientists and students to assess the state of knowledge of the nature and mechanics of Cretaceous atmospheric and oceanic circulation and identify critical research issues for the next decade.